Selective Translocation of PKC-delta to the Nucleus in a Neuronal Model of Apoptosis

9509097 Csernansky Protein kinase C (PKC) is an important enzyme involved in proliferation, differentiation and apoptosis in many cells. Preliminary experiments were performed examining the subcellular localization of PKC isozymes in mouse pure neuronal cultures deprived of serum, a model of apoptosis. One isozyme, PKC-delta, is selectively translocated to the nucleus during serum deprivation injury in neurons. The hypothesis that translocation of PKC-delta is an early, and possibly critical event in the development of serum deprivation injury will be tested. Immunoblots will be performed on total and nuclear protein fractions from pure neurons to confirm that translocation of PKC-delta protein is observed when PKC-delta immunoreactivity appears in the nucleus. PKC kinase activity will be evaluated for the total and nuclear neuronal protein fractions to determine whether there is a change in nuclear PKC activity during serum deprivation. Nerve growth factor deprivation-induced apoptosis in PC 12 cells will be used to determine whether translocation of PKC-delta is critical for the development of apoptosis in other model systems.